Standing Phase Angle Reduction in Power Systems

The presence of excessive standing phase angle difference across open circuit breakers which connect transmission stations cause significant delays in power system restoration. During the initial phases of restoration when the power system is primarily under manual control, these phase angle differences are reduced by the time consuming process of trial and error adjustments of real power generation. Determination of timely adjustments of the correct amount of real power generation at the right power plants are difficult tasks for the power system operator to perform, particularly under pressure of time. The prime objective of the proposed research is to develop an algorithm which would minimize the amount and the number of adjustments in real power generation to reduce the excessive standing phase angle differences and allow closures of circuit breakers for a quick and orderly restoration of power systems following a major disturbance. The methodology has additional values during emergency operation, such as the unloading of large transformers overheated by Geomagnetically Induced Currents, or the reduction of power flows in the overloaded transmission lines.